Mathematical Laboratory of Numerical, Symbolic and GraphicalComputing

Students are focusing more on concepts in a computer laboratory that supports numerical, symbolic and graphical calculations. The laboratory consists of 15 NeXT personal workstations, supported by networked fileservers and laser printers. A laboratory experience is being incorporated into six mathematics and mathematics education courses.